A Proposal to Develop and Maintain an On-line Database (INFLOW) on Engineering and Computer Information Sciences Doctoral Recipients and Graduate Students

The Quality Education for Minorities (QEM) Network will develop and maintain
an on-line database of information on doctoral engineers and computer scientists
and students pursuing graduate degrees in all fields of engineering and
computer and information sciences. Individuals featured in the database will be
U.S. citizens or permanent residents. QEM will strongly encourage the
registration of individuals from minority groups underrepresented in these fields
(African Americans, Hispanics, Native Americans, and Pacific Islanders). The
proposed database (INFLOW) will be designed to serve as a one-stop source of
basic information on engineers and computer scientists in academia, industry,
and government that can be regularly updated by participants via QEM.s web
site using individually assigned passwords.